Basic Science Plan for Collaborative Research in Active Tectonics

9317802 Davis This action provides funds to plan and conduct a workshop to develop a science plan for the Active Tectonics initiative. Results are expected to focus and guide the future activities conducted under this initiative.